REU Site in Microengineered Materials

The University of New Mexico operates a Research Experience for Undergraduates (REU) Site on the synthesis and processing of advanced materials. Faculty with chemical engineering, chemistry, materials science and ceramic backgrounds serve as student mentors. Several projects involve participation from scientists at Sandia and Los Alamos national laboratories. The REU Site is affiliated with the Center for Microengineered materials, an industry-university cooperative research center at the University of New Mexico. Projects offered to undergraduates include research on the sol-gel synthesis of nanostructures, nanoparticle systems, and thin films and interfaces. Twelve students are recruited every year for a ten-week summer research experience.